Langston's Integrated Network College for Science, Technology, Engineering and Mathematics

Title: Langston's Integrated Network College (LINC) for STEM

Langston University

HRD - 0310321

PI - Jean Manning

Langston University will implement comprehensive approaches to strengthen the institution's undergraduate science, technology, engineering and mathematics (STEM) education and research infrastructure. With NSF support, the University will to (1) increase the number of underserved students who enter college, receive undergraduate and advanced degrees in STEM disciplines, and choose STEM careers through a coordinated, linked network of existing and new programs and systems, and (2) expand the opportunities and number of STEM faculty who are involved in mentoring and integrating research and education activities. The project's objectives by 2008 are to: (1) increase the number of Langston's STEM graduates 15% annually; (2) increase Langston's STEM graduates who receive postgraduate degrees 40% annually, and 3) significantly expand opportunities and the level of participation of STEM faculty involved in mentoring and in the integration of research and education activities.